Instrumentation for Undergraduate Nuclear Physics

The goal of this project is to offer students experience with modern instrumentation and computing equipment for nuclear physics. The equipment centers on high resolution gamma ray dector and IBM computer with a math co-processor. Supporting equipment includes a plotter to produce hard copy output from the computer, as well as electronic modules to shape, amplify, and analyze the signals from the detector. Other supporting equipment includes radioactive sources which will be studied with the equipment requested. The equipment will be used to instruct students bound for employment as teachers or engineers or bound for further education in physics, chemistry, geology or engineering. Specifically this equipment will be used to improve teaching of the instrumentation and methods of nuclear physics. The University will match the award with an equal amount of funds.